Sensing, Modeling, and Control of Smart Sustainable Microgrids

Intellectual Merit: This project considers both theoretical and practical aspects of
response, control, and status of the University of Hawai`i Manoa (UHM) campus
electrical microgrid and studies its behavior when distributed renewable energy sources
are added. This project will transform the UHM campus's electrical distribution network
into a more modern, intelligent and responsive microgrid which relies on a greater share
of locally generated energy and energy efficient practices. Three interlinked research
projects will be integrated into the education program on smart grids, renewable energy,
and energy efficiency. The first component assembles all relevant information about the
state of the microgrid and surrounding environment. A second component models and
analyzes the microgrid using probabilistic signal processing and networking models to
accurately predict the state of the microgrid and detect anomalous events (e.g. ramps in
amount of solar PV produced and electrical grid outages). Once accurate models are
constructed and verified through simulations and data gathering, the third project
provides decision-making capability for the microgrid using distributed control and
optimization algorithms to create a secure and stable microgrid to reduces costs and
energy use. Students and faculty will work in a newly created smart campus energy lab
(SCEL) which will house the data and networking components of the UHM campus
microgrid.

Broader Impacts: UHM researchers and students will be able to combine what they
learn in the classroom with theoretical and practical research projects in the SCEL and on
the UHM campus microgrid. This understanding and practical knowledge will lead to
better insight on the design and integration of new technology for the microgrid and
future utility-scale smart grids. Through collaborations with the Native Hawaiian
Science and Engineering Mentorship Program (NHSEMP) and the Society of Women
Engineers (SWE), the project will also target underrepresented students. This project
differs from other smart sustainable microgrids being deployed at other academic
institutions and communities as our energy profile is unique (Hawaii pays the highest
electricity prices in the nation), we will incorporate large shares of distributed renewable
energy (rooftop PV), and Hawai`i has unique micro-climates (no heating and wide
variability in rainfall and cloud cover).